MRI: and Information Sciences Grid Node Research Facility

This project, from an institution in an EPSCoR state, acquiring instrumentation to set up a grid, aims at enabling/assisting research in areas such as economics, simulation, modeling, high performance computing, graphics and computational science projects (e.g., splicing). Ten different projects, involving the use of grid networks and possibly cluster of computers, are addressed in the fields of Computer Science and Computational Science. The infrastructure enables the following projects:
Cluster/Grid Economics and Performance
Better Explicit Parallel Programming Model
Collaborative Environment for Multidisciplinary Research
Research Modeling and Graphics
Scalability of I/O and System Fabrics in a Grid
High Performance Linear Algebra Research and Benchmark
Exemplar for Campus Grid
Grid-Based Modeling of Cardiac Electrical Activities
Multi-Dimensional Scalable Dynamic Sequence Alignment Algorithm
Accelerating Phylogenetic Tree Inference Using Grid Computing

Broader Impact: Enabling collaborations between CS and other disciplines, the infrastructure will additionally aid in the quality of the summer visualization camp for high school students (targeting some underrepresented groups). Moreover, the equipment will service at least 8 PhD students, as well as other graduate and undergraduate students.